Workshop on International Human Resource Issue, August 12-15, 1992, Gothenburg, Sweden

The 1992 Joint Meeting of the Society for the Social Studies of Science (4S) and European Association for the Study of Science and Technology (EASST) is to be held August 12-15, 1992 in Gothenburg, Sweden. A group of U.S. academic participants will organize two sessions dedicated to international human resource issues, and prepare a special analysis of session materials and discussions for NSF. This report is intended to contribute to an agenda for international human resources issues relevant to planning NSF international activities. As one issue, the special analysis will consider the availability of international measures of science and technology human resource trends. Other international issues will be addressed concerning scientist and engineering education and practice worldwide in terms of equity issues, training and retraining. The special analysis will serve as highly useful input to NSF and INT in planning international initiatives. ***